Conference Support: Advances in System Theory Symposium. To be held October, 15-16, l999, in Cambridge, Massachusetts

Advances in Systems Theory (AST) is a technical Symposium which will be held October 15-16, 1999, at the Royal Sonesta Hotel in Cambridge, Massachusetts, USA. It is focused on the theme of systems and control. This scientific meeting will provide an excellent opportunity for researchers to: a) evaluate past accomplishements, b) discuss recent trends and c) promote new ideas. Everyone is welcomed to take part in the Symposium and special care wil be taken to encourage the participation and attendance of graduate students from Boston area schools.